CISE Research Instrumentation: A Broadband Software Radio Testbed for Research in Wireless Communications

9818315
Liu, Hui
Azizoglu, Murat
University of Washington

CISE Research Instrumentation: A Broadband Software Radio Testbed for Research in Wireless Communications

This research instrumentation enables research projects in:

- Wireless Laboratory Enhancement,
- DSP Solutions for Low Complexity Multi-User Detectors, and
- Bit-Interleaved Coded Modulation for Wireless Data Network.

To support the aforementioned projects, the Department of Electrical
Engineering at the University of Washington will purchase microware testing
equipment and computing facilities for upgrading an existing wireless
communication laboratory. The equipment is used to set up a broadband
software radio testbed which consists of a multichannel RF transceiver
module, a multiple broadband data acquisition system (>10Ms/c/s), an
arbitrary RF signal generator, and a wireless channel fading simulator. The
new testbed enables experimental research in the areas of broadband
multiple-access, multiuser detection, time/space diversity combining,
wireless networking, as well as other potential multidisciplinary research
related to personal communication services (PCS). Both the quality and
scope of on-going and future research in wireless technology is enhanced
by the proposed instrumentation. Anticipated impacts of this project
include larger capacity, better interference and fading resistance, and
higher power efficiency and system flexibility for wireless systems.